Mathematical Studies of Excitability in Physiological Systems

Keener
9970086
The investigator develops and uses mathematical models and
tools to study a variety of problems in physiology organized
around the theme of excitability and wave propagation. The three
main interconnected thrusts for this work are: 1) to develop
mathematical models that can be used to describe specific
physiological phenomena; 2) to develop analytical techniques,
numerical algorithms, and computational tools to study the model
equations; 3) to use analytical and numerical tools to understand
the behavior of these systems and to thereby better understand
the underlying physiological processes. The physiological
problems are drawn from four specific areas: 1) cardiology and
the problems of fibrillation onset and defibrillation; 2) calcium
dynamics and excitation-contraction coupling in cardiac cells; 3)
the role of microtubule networks in the transport of chemicals
throughout a cell; 4) the involvement and spatial spread of
bacteria in chemical reactions, such as mine tailings dumps,
water treatment plants, oil spills, etc.
The common thread running through this work is that chemical
signals underlie motion, and this work is directed toward an
understanding of how chemical signals are generated, controlled,
and how they mediate motion. Such an understanding is a crucial
first step toward solving several important health-related and
environmentally related problems. Specifically, an improved
understanding of the heartbeat and how and why it fails could
give new clues as to how to prevent or cure some dangerous
cardiac disorders. Similarly, an improved understanding of how
bacteria (and other living cells) move and regulate their motion
could lead to improved organic control of toxic chemical wastes.